Far Infrared and Microwave Magneto-Optical Studies of Strongly Correlated Electronic Systems

This research concerns far infrared and microwave magneto-optical studies of type II superconductors and semiconductor heterostructures. A systematic investigation of vortex core excitation resonance and the magneto-optical activity of type II superconductors will be made. The goal is to gain an understanding of high temperature superconductors and vortex dynamics in general. The magneto-optical studies will look for direct evidence for cyclotron resonance and optical activity and search for helicon propagation and the ac Hall effect in superconductors. These investigations will break new ground in superconductivity research and hold the promise of opening new paths for the science and technology of superconductors. The work on semiconductor heterostructures will be directed toward the study of the low lying collective excitations in low dimensional electron systems. The goal of these studies is to elucidate electron correlation effects in these strongly interacting systems. Magneto-optical and magneto-transport studies will be carried out. These studies may lead to the discovery of novel condensed phases such as the Wigner crystal or new correlated liquid phases in 3D or quasi 3D electron systems. The infrared techniques will also be used to study magneto plasmons in 2 dimensional electron systems. In this case the interest is the observation and study of the magneto-rotons associated with the fractional quantum Hall effect. %%% This research concerns fundamental studies of superconductors and semiconductor heterostructures in high magnetic fields. The studies on superconductors are directed toward improving the understanding of the electrodynamics of these materials at microwave and infrared frequencies. They are based on the recent observation of new magneto-optical effects in these materials and will be systematically studied in both high temperature superconductors and in conventional superconductors. These studies are likely to break new ground in superconductivity research and they hold the promise of opening new paths for the science and technology of superconductors. The work on semiconductor heterostructures will be directed toward the investigation of collective excitations in low dimensional electron systems. The goal of these studies is to elucidate electron correlation effects in these strongly interacting electron systems. Magneto-optical and magneto-transport studies will be carried out and may lead to the discovery of novel condensed pahses in electron systems. The program involves collaboration with both industrial and government laboratories.